Studies in Theoretical Physics

This work addresses questions ranging from the possible charges of
elementary particles to the possible shape of our universe. The main
research tool is finding and using classical features of diverse physical
systems. The classical aspects make it feasible for undergraduate as
well as graduate students to contribute significantly, also advancing
their own education.

Besides the questions, the method itself is important because classical
intuition strengthens and speeds the research and eases understanding of
the results for other researchers as well as the public at large. For
example, properties of the neutrons and protons found in all atomic
nuclei may be understood by viewing each such object as a kind of knot, and
using experience about how a knot responds to squeezing and to tugging.